New Avenues for the Intramolecular Diyl Trapping Reaction

The focus of this research is two-fold. In the first area, the use of intramolecular diyl trapping for the preparation of taxol-related compounds will be explored. In the second area, the use of 1,3-diyls as partners in ı4+3! cycloadditions with 1,3-dienes, intramolecular reactions involving cycloaddition to cyclobutenones followed by fragmentation, and direct 7-endo,trig cyclization reactions will be used to form compounds containing either seven or eight-membered rings. %%% With this Renewal award, the Synthetic Organic Program is supporting the research of Dr. R. Daniel Little of the Department of Chemistry at the University of California, Santa Barbara. Professor Little will focus his work on the development of diradical (diyl) trapping strategies for the synthesis of taxol-related systems and for the preparation of carbon compounds containing seven or eight-membered rings.